Power Systems Engineering Research Center

Washington State University continues to be a research site for the multi-university Power Systems Engineering Research Center (PSERC) headquartered at Cornell University. PSERC is now a consortium of 13 universities and about 40 companies and is a unique and premier resource for the country in electric power engineering research. The intellectual merit of the activity is the development of novel technologies to increase the reliability and efficiency of the electric power grid of the country. The broader impact of this research is on the economy of the nation for which a reliable, economic and secure electric power supply is an absolute necessity.